Mathematical Sciences: Algebraic Geometry

Joseph Harris works in algebraic geometry. More specifically he will work on problems connected with moduli spaces of curves, K3 surfaces, polarized varieties and n-tuples of points including their cohomology and line bundles. In addition he will address problems concerning limits of linear series and curves on general surfaces and three-folds. Finally he will look at problems concerning rational points on varieties of general type. Algebraic geometry is the study of the geometric objects arising from the sets of zeros of systems of polynomial equations. This is one of the oldest and currently one of the most active branches of mathematics with widespread applications through out mathematics and reaching into physics, computer science etc. Harris is one of the very best practitioners of this subject with his constant flow of very deep contributions. This proposal will undoubtedly lead to many more exciting results.